Development of an Accelerator-Based Heavy-Ion Microprobe Users Facility

9724571 McDaniel A scanning nuclear microprobe users facility will be developed at the University of North Texas. The users facility will be available to universities, government laboratories and industry. Potential users have applications in a variety of topics, including surface analysis, electronics, art and archeology, biology, environment and geology. A workshop to be held in conjunction with the yearly International Accelerator Conference in Denton, TX, will train scientists and students on the uses of this facility. %%% The microprobe being built is the finest instrument available at the time and the center of a relatively unique facility in the country. ***